Novel Photonics Materials Generated via Laser Assisted Molecular Beam Epitaxy

A new method for the generation of inorganic: organic composites for Photonics using Laser Assisted Molecular Beam Epitaxy (LAMBE) will be developed. Photonics, which involves the use of photons to acquire, process, store and transmit information, is emerging as a new multidisciplinary frontier of science and technology. These proposed novel composite photonic materials will combine the high optical quality and environmental stability of inorganic oxides with the large nonlinear optical coefficients of organic structures. The new technique of generating these composites is highly unique in that it involves a low temperature processing more suitable for sensitive organic materials. It involves direct injection of an organic vapor into a molecular beam expansion of the inorganic oxide produced by typical laser ablation. The mixed system is subsequently deposited on the desired substrate. Films of optical waveguiding quality will be produced using the proposed technique of laser assisted molecular beam epitaxy, and the linear and nonlinear optical properties of these films will be characterized.